U.S.-Portugal Cooperative Research: Synthesis of Medium RingHomologs of Flavonoids and Diphenyl Ethers via Nitrenium Ions

Abramovitch 9304094 This award will support collaborative research between Rudolph Abramovitch, Clemson University, and A. P. Rauter, University of Lisbon, Portugal. This project will develop the synthesis of (i) medium ring homologs of known flavonoids and flavanols and (ii) macrocyclic diphenyl ether lactones related to known naturally occurring ring synthesis, e.g. Combrestastin D-2. The research strengths of the two participants are complementary. Dr. Rauter's work on the chemistry of flavonoids has provided a basis for synthesizing medium ring homologs of flavonoids and flavanols. Dr. Abramovitch's on cyclizations using nitrenium ions provides a methodology permitting novel and ready access. The Portuguese part of the project will explore whether ketones (or enols) can trap arylnitrenium ions to form C-O-C bonds. The Clemson study will explore whether molecular modelling studies (MMX and AM1) can predict which starting materials have the right geometry to undergo macrocyclizations. ***